Advanced Studies in Novel Surfactants

ABSTRACT
EEC-9813309
Somasundaran/Columbia

This is an Exploratory Research Project to augment the Industry/University Cooperative Research Center
for Surfactants.

The dynamics of the formation of surfactant and polymer layers at solid-liquid interfaces using advanced spectroscopic techniques will be investigated. The research will utilize near-field scanning optical microscopy, lifetime chemical imaging, 2-photon fluorescence spectroscopy with fluorescence, ESR, electrokinetic, wettability and microcalorimetric techniques. This should lead to optimization of industrial processes and commercial formulations involving surface-active agents.